Geometric Harmonic Analysis

Harmonic analysis on sets is an area that has been under intensive development
since the 1980's. The first results concerned the behavior of singular integrals
on sets in terms of the geometry of the sets. The model operator, and
impetus to the theory, was the Cauchy integral with the model geometric
setting being a Lipschitz curve. This theory has witnessed an explosive
growth in terms of understanding the relation between L2 estimates in
terms of the multiscale geometry of the underlying set. One of the
realizations of the 1990's was that there is an L2 theory of geometry
in terms of so-called Beta numbers, and that there is a "dictionary"
that translates theorems on geometry of sets into theorems on wavelets,
and vice versa. While the theory of Beta numbers also gave a good
understanding of the multiscale structure of e.g. a data set, it only
provides a certain framework for the understanding of the geometry, and
does not encompass a theory analogous to Fourier series or the study of
heat flow. It is the development of such a theory, along with its
relations to the already understood multiscale aspects, that is now
required to provide a deeper understanding of harmonic analysis on sets.
For example the problem of building local coordinates that capture most
of the statistical behavior of (mostly) lower dimensional subsets has
not been well developed mathematically, though many proposed methods
have been studied. We propose to relate the top down methods (e.g. Beta
Numbers and corresponding geometry) to bottom up methods of diffusion
geometries.

This new method of studying harmonic analysis on sets is based on the
use of certain eigenfunctions related to the set. These eigenfunctions,
coming from naturally defined matrices, allow the introduction of "local
coordinates" on the set by picking the n largest eigenvalues, and
using the corresponding n eigenfunctions as coordinates. The method
proposed has a close relation to the theory of so-called prolate
functions, as the resulting eigenfunctions have similar properties. This
is in sharp contrast to the method of Coifman, Jones, and Semmes for
defining Haar type L2 frames on sets resembling Lipschitz curves.
The method of the proposal gives different functions with which one can
naturally define local coordinates and study (approximate and correctly
defined) heat flow on sets. Professors Jones and Coifman propose to
study these methods and develop a theory that can be combined with
previous results to relate top down behavior to bottom up behavior. This
is done from the point of view of computational efficiency and the
development of fast algorithms. They also propose to study the various
geometrical descriptions to provide new methods of attacking older
problems in harmonic analysis. In doing so, they aim to break new ground
and broaden the applicability of other earlier methods.